RUI: Benthic Community Structure and Reproductive Patterns of Benthic Organisms

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, sea-ice and biology in the Northeast Water (NEW) Polynya, which occurs near northeastern Greenland, in order to gain an integrated understanding of Arctic shelf-slope processes. This element of the NEW program will characterize the structure and function of benthic communities inside and outside the polynya. Grab and trawl samples will be taken to test hypotheses that benthic biomass and density are greater inside compared to outside the polynya. The role of benthic organisms in the flux or organic material between pelagic and benthic systems and in the transfer of energy from the benthos to higher trophic levels is central to this study.